International Conference in Approximation Theory

This award provides funding for the conference "International Conference in Approximation Theory" that will be held from May 8 - 11, 2017 at Georgia Southern University.

The conference focuses on recent developments in Analysis, especially in the field of approximation theory. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: https://sites.google.com/a/georgiasouthern.edu/approximation-conf/